U.S.-Australia Cooperative Research: Field-Flow Fraction- ation Techniques for the Characterization of Complex Macromolecular and Colloidal Materials

This award will enable Dr. Marcus N. Myers of the University of Utah to visit Australia for three weeks. Dr. Myers will continue his collaboration with Dr. Ron Beckett of the Chisholm Institute of Technology in Melbourne in the area of field-flow fractionation (FFF) instrumentation, and its application to environmental and industrial problems. FFF, a means of characterizing and separating macromolecules and other small particles, was originally developed by Dr. Myers and colleagues at the University of Utah. The methods developed have been applied to environmental problems by Dr. Beckett and colleagues in Australia, and the two groups have collaborated productively for five years. This award would permit continuation of this collaboration for another year.